The International Heliophysical Year (IHY) Africa 2009 Workshop; Livingstone, Zambia; June 8-12, 2009

This project is to support the International Heliophysical Year (IHY) Africa 2009 workshop to be held in Livingstone, Zambia from June 8-12, 2009. The workshop is a follow-on to the SCIntillation Network Decision Aid (SCINDA)/IHY Africa 2007 workshop held in Ethiopia. The scientific driver is investigation of the sources of and responses to space weather, particularly in regards to communications and navigation. A focus of IHY is the deployment of ground-based instrumentation in Africa, including the development of research infrastructure in developing nations. Some of this is accomplished by deploying instruments from ''donor'' nations to ''host'' institutions in Africa. The workshop will enable continued and strong interaction between scientists from the donor institutes and host institutes.

The meeting will focus on four main science areas: (1) Total Electron Content, (2) Ionospheric Irregularities and Scintillation, (3) Heliospace Science and (4) Electrodynamics and Plasmasphere. In addition, the meeting will include a fifth area of emphasis: Space Science Education and Public Outreach. The meeting will include oral sessions, poster sessions, and discussion sessions, and anticipates hosting 75 to 100 participants. Special efforts will be made to include graduate students, postdoctoral fellows, and young researchers, with particular attention paid to enabling participation from African nations.